CEDAR: A Program to Fabricate a Phase III Class 1 Spectrometric Facility for a CEDAR Observatory

This project will fabricate a Phase III array of four spectrometers which will provide measurements of all emissions with intensities greater than five Rayleighs at solar zenith angles of 100o at signal-to-noise ratios greater than ten. The database which covers the mesosphere and thermosphere will provide an unprecedented capability to quantitatively test the detailed physics of thermospheric models of major and minor ion and neutral species and associated thermal structure.